RUI: Nineteenth Century Farm Mortgages: A Data Collection Project

Recent problems with the savings and loan industry are reminiscent of four other American mortgage market crises between 1830 and 1940. Each episode was accompanied by severe macroeconomic dislocation, and was intimately connected to innovations or modifications of existing lending arrangements. This project is designed to investigate one of these episodes, the mortgage boom of the 1800s and the bust of the 1890s. Two innovations were introduced in the 1870s to stimulate the flow of mortgage funds from the Northeast to the agricultural frontier: western mortgage banks, and mortgage lending by eastern life insurance companies. The volume of lending through both channels increased rapidly for two decades. But nearly all of the western mortgage banks collapsed when the western land boom ended in the early 1890s, while the mortgage investments of the life insurance companies continued to perform satisfactorily. The goal of this project is to explain why the performance of these two innovations was so different. This research is important because it will provide a better understanding of why institutional innovations in the mortgage market have been so fragile throughout the history of American economic development. The most appealing explanations for the failure of nineteenth century mortgage banks emphasize that informational asymmetries are inherent in institutional mortgage lending. However, these hypotheses have yet to be tested because information on individual mortgage contracts is not easily attained. The data base to be assembled will contain detailed information on more than 70,000 mortgages made by the Aetna Life Insurance Company, and a Kansas mortgage bank (the J. B. Watkins Company) in eight western states. These were two of the most important institutional lenders operating in the western farm mortgage market between 1870 and 1900. These data will be used to examine whether differences in the design of contracts and lending practices explain why institutions such as the Watkins Company failed, while insurance companies were having little trouble with their mortgage portfolios. Other scholars will also find this data set useful for addressing a broad range of economic, social, and political issues connected to nineteenth-century western farm settlement and mortgage making.